Developmental Biology and Phylogeny for the Gigartinales (Rhodophyta)

The most recent classification of the red algae (Rhodophyta) recognizes one class and seventeen orders, the largest being the Gigartinales with over forty families. For the most part, growth takes place by means of apical cells and the plant body is composed of branched filaments linked by pit connections. This feature makes it possible to describe vegetative and reproductive development cell by cell, event by event using morphological and cytological markers seen with light microscopy. Growth is punctuated by discrete events and transitional stages that bracket each phase of development. These include formation of : juvenile uprights, adult thalli, reproductive organs, and filamentous structures employed in nutritional strategies for fruit development and spore production. Characters used in classification are resolvable into component ontogenetic sequences. Primitive and advanced character states are readily polarized, apparent reversals resolved, and instances of convergent evolution (homoplasies) identified. Analysis shows that every red algal order can be defined by its basic developmental plan, except the polyphyletic order Gigartinales. This study investigates the developmental morphology of family clusters in the Gigartinales to complete a phylogenetic analysis of the group.